Guest Scientist for Research and Lectures in Mathematics at the Indian Statistical Institute in Calcutta, India, Award in Indian Currency

Description: This project supports a U.S. guest scientist on sabbatical leave at the Indian Statistical Institute in Calcutta for four months between January and May of 1988. He is scheduled to lecture on the theory of hypergeometric series and orthogonal polynomials and to conduct research into orthagonal polynomials in several variables associated with intertwining operators for certain induced representatives of the symmetric groups and the general linear groups over a finite field. Scope: The P.I. is an active researcher who has visited India before and spent one year at the prestigious Tata Institute of Fundamental Research. His project now takes him to an excellent research institute in Calcutta where significant research and graduate teaching is being done on various aspects of mathematics, and statistics and their applications to various science fields. His proposed visit will include, in addition to teaching, research in an area where he hopes to develop computable theory of certain polynomials, with large potential applications. His work at the ISI, calcutta is likely to benefit his research, to benefit his Indian hosts and to lead to future collaboration.